Supporting high school students and teachers with a digital, localizable, climate education experience

Teachers regularly adapt curriculum materials to localize for their school or community context, yet curriculum materials are not always created to support this localization. Developing materials that are intentionally designed for localization has potential to support rich science learning across different contexts, especially for a topic like climate change where global change can have varied local effects. This partnership of BSCS Science Learning, Oregon Public Broadcasting, and the National Oceanic and Atmospheric Administration advances curriculum materials development for high quality units that are intentionally designed for adaptation by teachers for their local context. It will develop and test a design process bringing together national designers and teachers across the country. Teachers will be supported through professional learning to adapt from the base unit to create a local learning experience for their students. The project will create a base unit on carbon cycling as a foundation for understanding how and why the Earth's climate is changing, and it will study the process of localizing the unit for teachers to implement across varied contexts to incorporate local phenomena, problems, and solutions. The unit will be fully digital with rich visual experiences, simulations, and computer models that incorporate real-time data and the addition of localized data sets. These data-based learning experiences will support students in reasoning with data to ask and answer questions about phenomena. Research will study the unit development and localization process, the supports appropriate for teachers and students, and the impact on classroom practice.

The project will adopt an iterative design process to create a Storyline base unit, aligned to Next Generation Science Standards, for localization, piloting, and an implementation study with 40 teachers. To support teacher learning, the project adopts the STeLLA teacher professional learning model. To support student learning, the project addresses climate change content knowledge with a focus on socioscientific issues and students’ sense of agency with environmental science. The project will research how the educative features in the unit and the professional development impact teachers’ practice, including their content knowledge, comfort for teaching a socioscientific issue, and their ability to productively localize materials from a base unit. The study uses a cohort-control quasi-experimental design to examine the impact of the unit and professional learning experience on dimensions of students' sense of agency with environmental science. The study will also include exploratory analyses to examine whether all students benefit from the unit. It uses a pre-post design to examine impacts on teacher knowledge and practice.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.